Particle Methods for Nonlinear Time-Dependent PDEs

The investigator develops mesh-free particle methods for
nonlinear partial differential equations, with particular
reference to problems that admit nonsmooth (discontinuous)
solutions and to problems that involve highly disparate scales.
A major focus is developing procedures to recover an approximate
solution from the particle distribution that adapt to varying
smoothness of the solution. Other aims are to develop hybrid
finite-volume-particle methods and improve the accuracy and
efficiency of particle methods. The methods are applied to
several illustrative problems: zero diffusion-dispersion limits
for conservation laws, the Euler-Poincare equations, models of
multiphase and multifluid flows, pollutant transport problems
with discontinuous coefficients, simulation of chemotactic
bacteria aggregation, snd stochastic initial value problems.

Solving partial differential equations numerically is an
important and efficient tool for the quantitative and qualitative
study of many phenomena in different applied areas that otherwise
could not have been studied at all. The investigator develops
numerical methods that offer some advantages over other
techniques for computing solutions of partial differential
equations, particularly for problems with complicated geometries
or moving boundaries, and applies the methods to a number of
illustrative examples.